RUI: Studies of Atomic Collisions at Intermediate Velocities (Physics)

The density matrix will be measured for excited hydrogen atoms formed in 5-35 keV electron transfer collisions. This will provide detailed tests of theories of electron transfer. The experiment measures the Stokes parameters which completely characterize the emitted Lyman alpha radiation as a function of axial and transverse electric fields applied in the collision cell. The fields cause the atom to evolve between the points of creation and decay, inducing characteristic variations in the Stokes parameters. The density matrix is determined by fitting the observed signals.